Moduli Spaces that are Upper Half Plane Quotients and the Inverse Galois Problem

MODULAR TOWERS AND THE IGP OVER THE RATIONALS: Often researchers use
algebraic relations in two variables x and y over a field to describe
significant data. Some examples are sets of values x having an (x,y)
with entries in the field that satisfy the relation. One of these is the
Davenport's problem of determining equivalence classes of polynomials
according to their value sets over finite fields. Describing complex
multiplication fields, generated by those x with (x,y) a special
elliptic curve torsion point, is a variant. A relation with a data
variable x produces a permutation group G: The Galois group. The
investigator treats these as cases of the Inverse Galois
Problem (IGP). One goal is to decide, from certain lists
of relations, if some have the rational numbers as definition field.
Serious group theory helped solve Davenport's 1965 problem and Schur's
exceptional polynomial problem (1919; see below). Further, modular
curves reveal complex multiplication to be a version of Schur's
problem. Having command of all finite simple groups has many
applications. One is to list those groups attached to exceptional
polynomials. Knowing many characters of Chevalley groups showed Thompson
and Voelklein where to find series of solutions to the IGP. Yet, it will
require more than massive group theory to solve the whole IGP. The
investigator uses Modular Towers, a modular curve generalization, to
finesse unknowable group classifications. He and his students let a
known group G, and a prime p dividing the order of G, seed the base level
of a Modular Tower. Higher tower levels code relations with mysterious
groups covering G related to p. Coherent maps between the tower levels
replace details on these intricate covering groups. Work of Y. Ihara and
J.P. Serre inspire showing that Modular Towers has many properties of
their special, modular curve, case. For example, high tower levels for a
G with no Z/p quotient should have no rational points. For certain groups G,
and the prime p=2, this extends Serre's program on spin structures. The
investigator applies new spin-like structures to all cases when p is 2 and
to all primes p.

PRACTICAL CRYPTOGRAPHY AND IGP OVER FINITE FIELDS: Modern cryptosystems
aim to secure electronic transfers of data. Exceptional functions act as
permutations on infinitely many finite fields. A special case of the
Inverse Galois Problem over finite fields asks how to construct
exceptional functions. These scrambling functions look simple. Users can
easily apply them (up to 1993, all came from the 19th century). Still,
finding them has been difficult. Fried (UCI), Guralnick (USC) and Saxl
(Cambridge) nearly classify them. This solves old problems (Dickson 1896
and Carlitz 1965). They also produce unexpected new examples. Their best
discovery is that exceptional polyomial Galois groups (excluding now
well-understood cases) have the affine geometric property. This is
useful for it gives the degrees of exceptional polynomials. Yet, it is
also a difficult challenge: There can be no final description of all
affine groups. The investigator with A. Mezard approaches affine groups
by generalizing to all algebraic relations over finite fields
Grothendieck's famous results for tame relations. Applications for
exceptional functions alone include ways to manipulate data for
encryption and to assure integrity. This will mean faster, more
efficient and accurate file back-ups; more stable software; and more
secure data transfers.